Comprehensive Disability Guide

The AAAS's Project on Science Technology and Disability has developed and published four concise brochures as a series to serve as comprehensive accessibility guides for research directors, meeting conveners, department heads, and professors so that all aspects of their programs will be accessible to scientists, engineers, and students with disabilities. The series includes the following: Barrier-Free: Workshops and Conferences for Scientists and Engineers, Barrier-Free: Laboratories and Classrooms in Science and Engineering, Barrier-Free: Access to Science Literacy, and Barrier-Free: Access in Word and Deed. The existence of the series has been widely publicized and requests have exceeded expectations. The original plan was to have the series available at AAAS and other scientific meetings but the AAAS has received requests for the series by mail daily. They are no longer able to honor the requests without some financial support. This project will provide funds for postage and secretarial assistance. The passage of the Americans With Disabilities Act has made the dissemination of the Barrier-Free series timely. This project will aid in efforts to remove barriers which have, in the past, prevented scientists and students with disabilities to fully participate in scientific research and studies.